Metabolic and Biochemical Studies of Nonprotein Amino Acids

This award supports basic chemical, biochemical, and chemical ecological studies of a group of nonprotein amino acids, namely L- canavanine and its metabolic derivatives, that function in higher plant chemical defense against insects and other destructive agents. These investigations will enhance our understanding of the biochemical bases for higher plant nonprotein amino acid toxicity in insects and provide valuable insight into why potentially protective allelochemicals fail to elicit deleterious effects. Just as it is critically important to know how toxic allelochemicals function to protect a plant, so too must we understand insect capacity to deal with toxic natural products. An understanding of the metabolic resources that an insect uses to avoid or detoxify pernicious plant allelochemicals is of basic importance in any future use of these compounds in insect control. No single investigation by itself can achieve this practical aim. Nevertheless, it is critically important to select a model system about which we have a basic and detailed understanding and to use it to consider this question in a sound and thorough manner. This approach can provide data essential to the eventual achievement of this pragmatic goal.